Investigation of a Novel Scanning Magneto-Acoustic Imaging Microscope

There is data showing that electric and electrochemical ion currents in test objects can be imaged using a novel magnetic scanning and acoustic detection approach. This appears to be a new imaging technique which generates information concerning the electrical nature of the object not presently obtainable with other imaging approaches. It may be useful in diverse disciplines ranging from biology and electrochemistry, to electronic circuit testing. It would appear to be particularly useful in the noninvasive visualization of bioelectric currents flowing in living organisms. This research will focus on constructing and testing the charactersitics of a prototype imaging system similar n some respects to a scanning electron microscope. Instead of a scanning electron beam, a mechanically scanning 1 kHz magnetic field causes the generation of electrical Lorentz force vibrations in the object. Acoustic emissions from the sample are monitored with a piezoelectric detector and their intensity is used to create an image on a computer display. The research will attempt to use the system to noninvasively measure bioelectric current flows in small living obects in a new way which may give greater insight into functional physiologic processes.